NeTS: Small: Algorithms and System Support for Monitoring of Amorphous Phenomena with Dynamic Signatures in Wireless Sensor Networks

Emerging applications using wireless sensor networks for critical areas such as environmental monitoring and emergency response highlight the urgent need for more powerful algorithms for tracking amorphous events or phenomena with dynamic identities. Several such events may combine into a large whole or one event may disintegrate into several smaller ones. Current efforts in event detection and tracking have mostly assumed that either events remain distinct, never crossing or passing too close together to become indistinguishable, or if they do cross that they were identified prior and nothing new has formed. This project addresses the research challenges in designing and implementing a system that is capable of tracking events with or without well-defined shapes and identities in the presence of stringent energy constraints and unpredictable network failures posed by wireless sensor networks. Specific research objectives include: design and evaluation of algorithms that detect and track any types of events including amorphous phenomena with dynamic signatures and events that possess a static shape with a crisp boundary; design and evaluation of algorithms that form and reform communication structures around events of interest; and development of an integrated system that provides interfaces to high level application tasks to execute on each identified event. Successful completion of this project will result in a rich set of tools that can be used by applications monitoring all different types of events. The tools will be made publicly available via the Internet. This project provides opportunities for recruitment of female students and undergraduate students.